Proposal to add new Countries to the International Database on S&E

The U. S. Bureau of the Census will provide SRS a report on the stock and employment of scientists and engineers in three countries; India, Australia and Hungary. The Bureau of the Census will derive the numbers from the population census of each country; India, 1981 and 1991; Australia, 1986; and Hungary, 1990. Work with the statistical offices of each country will be done to obtain special census tabulations when needed. The report will provide the number of S&E per 1000 of he laborforce, and their characteristics; age, sex, education and employment by industry group. This information will be used in Science and Engineering Indicators and in Science and Technology International Update, for cross country comparisons of skilled laborforce.